Analysis of Fold and Thrust Belt Kinematics in the Central Brooks Range, Northern Alaska

The structural framework of the Brooks Range, Alaska has been the focus of recent research, and this renewal will build on this work. A number of fundamental problems will be addressed. The first is the formation of an apparent out of sequence thrust in the interior of the fold and thrust belt. Another is the timing and kinematic relationship of major extensional tectonism with progressive north-directed thrusting. Also to be studied are late-stage structures associated with antithetic shear and the formation of a large scale duplex in the center of the range. These are fall features of most fold and thrust belts, and results of this work will be applicable to other examples, as well s to the understanding of Alaskan geology.